Presidential Young Investigator Award

Research is underway that is designed to provide information on the mechanisms of the effects of applied and naturally generated electrical fields on the stimulation, and on the optimal parameters of electrical stimulation for prosthetic and therapeutic devices. This research area should have direct application to problems concerning electric field effects on the development of seizures in epilepsy. Several sophisticated techniques are being used, including ;itin vitro;ro brain slice preparations, current density analysis, and computer models of nerve cells and neural networks, to accomplish the research tasks.